Mathematical Sciences: Asymptotic Results for Arrays of Rowwise Exchangeabale Random Variables

The principal investigator will study various problems at the interface of probability, statistics, and modern analysis. The focus of this effort will be to expand Patterson's capabilities in topics in these areas. During the first year of this grant he will spent one month during the summer and three months during the fall at Texas A&M University. His stay will expose him to new topics in probability, and with the support of faculty members at Texas A&M he will formulate a set of specific problems.